SGER: Pheromonal Induction of Estrus and Ovulation in a Marsupial

The majority of species of animals have tightly regulated intrinsic reproductive cycles that are governed by such things as the time of the year or the availability of food. However, in some species reproductive function is governed by non-verbal physical cues, such as chemical attractants or pheromones. These chemicals provide information about the reproductive status of potential mates and may trigger reproductive cyclicity in some species. Dr. John Harder is investigating the reproductive, hormonal and neurobiological consequences of pheromone exposure in a model system completely dependent on chemical signaling. These exciting investigations will advance comparative reproductive biology and provide a unique model for the study of chemical activation on neuronal substrates. In addition, these investigations will have a significant impact on our understanding of the diversity of reproductive strategies used in wild animals and may facilitate the application of that understanding to the preservation of species in the wild and in captivity.